Analytic Theory and Control of the Motion of Spinning Rigid Bodies

The research objective is the development of a general analytic theory of the motion of asymmetric rigid bodies subject to arbitrary forces and torques. A secondary objective will be to develop control schemes for the motion which take advantage of the analytic solutions. The theory would comprise finding closed form solutions for the Eulerian angular velocities, the Eulerian angles, and the angular momentum vector in inertial space. The results will have a fundamental impact on practical applications in terms of the analysis and control of finite sized rigid bodies, particularly spinning space vehicles.